Natural Casual Induction

This research project is concerned about how ordinary people induce the causes of events. There are two aspects to this question: The first is what is computed in the covariational component of causal induction. Covariation, the difference between the probability of an effect given the presence of a potential causal feature and that probability given the absence of that feature, has generally been regarded as a necessary although insufficient criterion of normative causal induction. Contrary to prior research, recent work by Cheng and Novick has shown that a single reliable mechanism probably underlies this essential component. Uncertainty remains, however, regarding what exactly this component computes. In particular, Rescorla and Wagner's associationist model, the dominant model in animal conditioning, can account for many of the findings in human causal induction. Project I involves three predictions that differentiate between Rescorla and Wagner's model and Cheng and Novick's model, to be tested in three experiments. This project may yield a unified account of the covariation component in humans and animals. Project II aims at resolving a puzzling finding about the type of information gathered to test a hypothesis and the type of information used in evaluating a causal hypothesis. Recent evidence indicates that in evaluating a causal hypothesis, people spontaneously make use of the frequency of the effect in the absence of a potential cause. Research on the gathering of information for hypothesis testing, however, indicates that people do not search for this type of information. Project II will consist of three experiments that address two issues. First, are people in fact able to obtain indirectly and to use such information despite failing to directly gather it? The revision of hypotheses is one way of obtaining such information indirectly. Second, is there a dissociation between what people think they do in testing causal hypotheses and what they in fact do? Project II may provide an explanation of this puzzling finding and lead to the discovery of two distinct types of causal reasoning.